Collaborative Research: The mass profiles of dwarf galaxies with the Rubin Observatory

Most of the matter in the universe is invisible "dark matter," whose nature remains one of the deepest open questions in physics. Dwarf galaxies — the smallest and most numerous galaxies — are among the most sensitive laboratories for understanding what dark matter is and how galaxies form, because competing theories differ most in their predictions for these tiny systems. Yet dwarf galaxies are faint and difficult to find, and each contains so little mass that the gravitational distortions it produces in the images of more distant galaxies are far too small to measure individually. Only by combining measurements from millions of dwarf galaxies can the invisible matter surrounding them be detected — a feat beyond the reach of previous observations. Two powerful new facilities, the Vera C. Rubin Observatory (Rubin) and the Dark Energy Spectroscopic Instrument (DESI), now make this possible for the first time. A team of scientists from Princeton University and Stanford University will build the largest sample of dwarf galaxies to date and measure the tiny gravitational distortions these galaxies imprint on images of background galaxies. Combined with state-of-the-art computer simulations and powerful AI methods, these measurements will provide the first census of the invisible matter surrounding the smallest galaxies, revealing how they form and testing whether dark matter behaves as predicted. All catalogs and measurements will be shared freely with the public and the scientific community, and the project will expand a program that engages high school students in research with these data, building computational and data-analysis skills applicable across science and technology. This research award is partially funded by a generous gift from Charles Simonyi to the U.S. NSF Directorate for Mathematical and Physical Sciences Section of Astronomical Sciences. The project includes significant contributions to Vera C. Rubin Observatory’s Legacy Survey of Space and Time.

This project will use weak gravitational lensing to measure, for the first time, the average mass profiles of dwarf galaxies in halos below 10^10 solar masses, using Rubin imaging and DESI spectroscopy. Building on successful pilot studies with ~200,000 spectroscopic and ~700,000 photometric dwarf galaxies, the team will use the DESI sample both as a clean lens sample and to calibrate machine-learning selection of the largest, best-characterized photometric dwarf sample to date across the Rubin footprint. Stacked lensing measurements, as a function of stellar mass, redshift, size, and star-formation rate, will be interpreted with simulation-based forward models to constrain inner halo density profiles and the stellar-to-halo mass relation in a previously unconstrained regime — one where baryonic feedback is subdominant, enabling new tests of cold dark matter against alternatives. The project will publicly release curated catalogs, lensing profiles, and analysis tools, and will train high school and university students in cutting-edge data-analysis techniques.